AASP Participation in the Eighth International PalynologicalCongress, to be held September 6-12, Aix-en-Provence, France

Travel support is for provided U.S. students and professionals to attend the 8th International Palynological Congress in Aix-en- Provence, France, from August 28 to September 22, 1992. The support primarily is intended for student, women, and minorities who are members of the American Association of Stratigraphic Palynologists, Inc., which is holding its 25th annual meeting in conjunction with the Congress. The sessions, workshops, and field trips will feature the latest research techniques of palynology by several different scientific fields.